MRI: A Laboratory for Telecommunications Management Network Research

9724517 Dunham, Margaret Barr, Richard Southern Methodist University MRI: A Laboratory for Telecommunications Management Network Research Southern Methodist University will be acquiring four ATM switches and associated network hardware to establish a telecommunications laboratory which will support research in the areas of database, optimization and network planning, fault tolerant and distributed processing, and visualization. Southern Methodist University plans to use the telecommunications laboratory to support graduate student research as well as an experimental testing facility for graduate level courses such as Operating Systems, Parallel and Distributed Processing, Database Management, Software Engineering, Telecommunication Network Management, and Systems in Telecommunications.